NGS: Optimizing Performance and Reliability in Distributed Computing Systems Through Wide Spectrum Storage Services

Title: Optimizing Performance and Reliability in Distributed Computing Systems Through Wide Spectrum Storage Services

Logistical Networking promotes an innovative model of network storage that views data transmission and storage as part of a unified framework, just as military or industrial logistics view transportation lines and storage depots as coordinate elements of a single infrastructure. Under the Logistical Computing and Internetworking (LoCI) project, we have created and implemented a primitive abstraction of network storage, called the Internet Backplane Protocol (IBP) [43], as the lowest network layer in a "storage stack" for Logistical Networking.

The goal of the proposed research is to test this hypothesis by creating a Logistical Runtime System (LoRS) designed to support advanced applications on a well-provisioned network of IBP-based storage, and then exploring its value and performance along several dimensions using real-world Grid applications.